The Alsos Digital Library

This project is building a collection of references to resources that offer a broad, balanced perspective of topics relating to the origins, functions, and legacies of the Manhattan Project. The materials referenced include books, articles, videos, and vetted web sites. The critical task of the Alsos project is the integration of these references into a structured collection that allows users to examine this important period of history from many perspectives, thus strengthening the quality of science, mathematics, engineering, and technology education by connecting different disciplines, issues, and ideas. Searching and indexing tools link the components of Alsos and facilitate the exploration of these materials for general readers and specialists alike. In addition to the references, Alsos contains a set of indexed, digitized sound tracks and images. A clear, intuitive user interface provides seamless navigation through all of these components.